Asymptotics at Resonant Scales: Application to Inhomogeneous Material Simulation, Discretization and Inversion

Moskow
DMS-0605021

The investigator focuses on material models involving
multiple coexisting scales, for which ad-hoc computational
approaches frequently yield unsatisfactory results. Through a
rigorous mathematical study, she finds effective parameters and
approximations that are not otherwise obvious. She combines
computational and analytic tools to produce novel techniques that
can simulate and image composite materials. In particular, the
study involves structures arising from photonic bandgap
materials, geophysical inversion, and heterogeneous
electrochemical surfaces. The investigator answers open
questions about the interaction of small scale parameters,
solution expansions at singularity surfaces, and the links
between continuous and discrete inversion.

Often the behaviors of many material substances, whether
geological deposits or designed electromagnetic materials, depend
on interactions between components of the materials at different
scales of length. The investigator studies problems of this sort,
in which advances have an impact in the applications area as well
as in mathematics. The new photonic simulation techniques aid in
the development of the next generation of nano-scale materials
and optical devices. The tailored computational approaches allow
for more accurate geophysical prospecting. The investigator and
collaborators also analyze models that further the fundamental
understanding of certain electrochemical processes. Both
graduate and undergraduate students benefit by participating in
the project at appropriate levels.